College of St. Joseph Connection to the Internet

Abstract ANIR-9810421 PI: Frank Miglorie College of St. Joseph Rutland, Vermont This project connects the College of St. Joseph to the Internet over a T1 line. Access to the Internet would establish a two-way information vehicle for the College that would connect its students, faculty and staff to resources (research data, mentors, career opportunities, distance learning) beyond its rural scope. The award provides partial support of the project for two years.